Oceanographic Instrumentation

0097848
Coale
This award to San Jose State University provides instrumentation to update and expand the oceanographic research capabilities of the research vessel Point Sur, a ship operated by the Moss Landing Marine Laboratories as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. A new undulating profiler with sensors for biological, physical and chemical oceanographic observations will significantly expand the ability of marine researchers to study mesoscale processes along the central California margin. New flat-screen monitors and cabinets will improve space constraints in the vessel laboratory, and a carousel water sampler will provide important backup capability for water sampling. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***